Continued Operation of the OSU/CEOAS Marine Geology Repository

This proposal seeks funds for the continued operation of the Marine Geology Repository (MGR) at Oregon State University. The repository distributed more than 27,000 samples over the past three years, over 70% went to non-OSU investigators. Institutional support includes support for the senior curators-in-charge and recent upgrades to the cyber-infrastructure and to refrigerated storage. The collection was recently expanded with the accessioning of 10,000 samples from the Geosciences Department. Proposed new work includes implementation of a state-of-the art bar coding system. In addition to service to the scientific community, the MGR also participates in K-12 and informal science education projects.